Database Support For Scientific Computing

Scientific data types show promise for support of scientific computing at all computer system levels, from programming and visualization tasks, through compiler and database technology, to operating systems. Rather than having a distinct data type mechanism at each level, this project concentrates on a coordinated approach across the levels of compiling, data management and operating systems, centered on database support for scientific data types. Key aspects of the project are the development and deployment of a Hybrid Data Manager as a software substrate for rapid experimentation in coordinated data type support across these layers. The HDM uses object-oriented database technology to build a powerful front end for data type instances residing in other storage systems. Existing datasets, as well as newly created objects are to be supported using a staged approach that can lend some support to existing codes while providing full data type support for newly created applications. An important phase of the project is the deployment of the HDM on applications in current use in two scientific domains, computational molecular chemistry and microstructure property predictions in materials science. The experience gained in this project will provide input in the design of a new generation of database systems that will better support the space and modeling demands of scientific applications as well as integrate tightly with compiler and operating system components for increased performance.